Forty-Fifth Annual Gaseous Electronics Conference; Boston, Massachusetts; October 27-30, 1992

This proposal grants $5000 to the organizers of the Forty Fifth Gaseous Electronics Conference, to be held in Boston, Mass. in October, 1992 for participant support.